Stress Level Effects on the Thermal Conductivity of Sand

This experimental research determines the effect of stress levels on thermal conductivity of soils. A modified triaxial cell will be used to perform conductivity measurements in soils at different levels of confining stresses. The results will help to develop constitutive relations between the thermal and mechanical properties of soils. Soil is a particulate system made up of discrete particles with void spaces. Thus, stresses on soils have a considerable impact on the thermal response characteristics. Experimental measurements on the conductivity of soils as a function of the boundary conditions have not been made thus far. The results of this research will have a potential to improve the basic understanding of the thermal and mechanical behavior of soils.